Introduction of Fourier Transform Infrared Spectroscopy intothe Undergraduate Chemistry Curriculum

The project is allowing the introduction of the important analytical technique of Fourier Transform Spectroscopy into the undergraduate chemistry curriculum. Laboratory experiences in organic, physical, inorganic, biochemical, and analytical chemistry is being significantly enhanced by the acquisition of an FTIR spectrometer. The improvements in spectral quality and speed of acquisition of spectra is allowing upgrading of the laboratory exercises in IR spectroscopy and is permitting the introduction of new experiments into the curriculum. Experiments with data handling techniques possible on a computer- controlled FTIR instrument is providing students with relevant skills to take with them to graduate school or to industry. The grantee is matching the award from non-Federal sources.